Mechanism and Macromolecular Organization in Photosynthetic Reaction Centers

In order to understand the mechanism of the initial charge separation steps in bacterial photosynthetic reaction centers, several lines of investigation are proposed. (i) Measurements of the resonance Raman intensities and excitation profile for the lowest Qy electronic state of the special pair, combined with photochemical holeburning, absorption and electroabsorption (Stark effect) spectroscopy, to obtain information on excited state dynamics; (ii) preparation and characterization of site-specific mutants in the vicinity of the special pair which perturb its redox properties to obtain information on the local dielectric properties which may affect unidirectional electron transfer; and (iii) studies of the quantum yields and kinetics of RC mutants whose donor, acceptor and mediating state redox properties are different from wild-type in applied electric fields to determine the mechanism of the fast charge separation and slower charge recombination reactions. %%% Photosynthetic reaction centers are the smallest chlorophyll- protein complex capable of sustaining the light-induced charge separation reactions which initiate photosynthesis. The first reactions are among the fastest reactions known in any system. In addition to the obvious importance of these reactions as the primary source of stored chemical energy on earth, these reactions have much broader biophysical and chemical significance. This is because electron transfer reactions are ubiquitous in nature, and because of the relative simplicity of this type of reaction, there is some prospect of being able to understand the reaction mechanism at a fundamental level. Bacterial reaction centers were the first membrane protein to be characterized by x-ray crystallography, and consequently all of our work falls under the general heading of structure-function relationships. The proposed research focuses on systematically altering the rates and mechanisms of charge-transfer reactions in the reaction center by modifying either internal or external electric fields. Internal fields can be altered by changing specific amino acids or stretches of amino acids using recombinant DNA methods. External fields can be applied either with electrodes to a bulk sample or as transmembrane potentials. The latter are of very great importance in nearly all biological assemblies and we seek to understand the mechanisms which couple such potentials to biological function.